Stochastic Adaptive Control and Related Topics

9971790
Duncan

This proposal describes a variety of stochastic problems for
investigation. These problems are associated with stochastic
adaptive control which is the control of an incompletely known
stochastic system. Typically to solve an adaptive control problem
it is necessary to identify the unknown parameter of the system and
simultaneously to construct a control. The cost functionals for the
control problems are typically ergodic (average cost per unit time).
A family of processes, fractional Brownian motion, is proposed for
development by extending a stochastic calculus and using these
processes for adaptive control problems. This family of processes
seems to have wide applicability. Adaptive control for stochastic
distributed parameter systems is proposed by considering partially
known semilinear systems. This family of systems includes some
stochastic partial differential equations. The adaptive control of
continuous time branching processes is proposed for investigation
because these processes are important and little use of control has
been made for these processes. Risk sensitive control problems are
especially useful for financial models. It is proposed to study
adaptive control for these problems. The work in this proposal
should be applicable to physical systems that have stochastic
models that are controlled. It should enhance the understanding of
these physical systems.

Mathematical models are used to describe physical systems and
analysis is performed on these mathematical models. Typically it
is required to control the physical systems so that control is
introduced in the mathematical models. Usually the models are not
completely specified so it is necessary to identify some parameters
of the model from the evolution of the system. To describe
perturbations or unmodelled dynamics in a system, noise is
introduced in the model. The control of an incompletely specified
system with noise is called stochastic adaptive control. It is
proposed to investigate a wide variety of problems in stochastic
adaptive control. These problems include lumped and distributed
systems. Some new noise models using fractional Brownian
motion will also be investigated.